U.S.-China Cooperative Research (Materials): Phase Equilibrium Studies in Silicon Nitride-Metal Oxide Systems

This award, which is jointly sponsored by the National Science Foundation and the Chinese Academy of Sciences, will support a cooperative research project between Dr. Tseng-Yin Tien, Department of Materials Science and Engineering of the University of Michigan at Ann Arbor and Dr. Yan Dongsheng, Division of Chemistry at the Shanghai Institute of Ceramics. Silicon nitride ceramics is one of the most promising materials for structural applications. However, it can not be densified without the use of sintering additives. The research will include phase equilibrium studies in silicon nitride-metal oxide systems and mechanical property measurements of selected specimens. Samples will be prepared and then analyzed using X-ray diffraction and an electron microscope. Results of the research will lead to a greater understanding between composition, microstructure and mechanical properties of silicon nitride ceramics. This research will further result in the development of silicon nitride ceramics with optimum mechanical properties. The Shanghai Institute of Ceramics and Professor Yan are world famous experts on phase diagrams. Professor Tien and his Michigan group are the pre-eminent researchers in this area in the United States. This collaboration should produce important scientific as well as technical results. It is likely that these researchers will continue their research exchanges even after this award has terminated.